Earlier and broader access to machine learning

The project goal is to develop a collection of modules to be used in various combinations, to introduce undergraduate students to the concepts and techniques of Machine Learning.

The project brings the concepts and techniques of Machine Learning to undergraduates, and explores the feasibility of making modular presentations of this material in formats for use in various combinations to meet the needs in a variety of subject areas. The project motivates the study by working with real scenarios from the subject domains and by using real data sets provided by an advisory board.

This project increases the pool of graduates available for research and development in areas where large quantities of data must be analyzed. The PIs attract students from underrepresented groups, both as testers of the materials and as students in the initial course deployments. The resulting modules are freely available for adaptation and reuse.